TRP: Semester in Manufacturing

9413085 Conway Cornell University and corning will develop an innovative, practice-oriented, full-semester course in modern manufacturing to be offered to master's students in Engineering, Management, and Labor Relations. This 15-credit course will be the student's only class for an entire semester. Its innovative, total immersion approach to improving manufacturing education could serve as model for use by other universities.